Godunov's Method for Gas Dynamics: Current Applications and Future Development (Symposium)

van Leer 9711050 The investigator and colleagues organize an international symposium on Godunov-type methods, which are widely used to compute continuum processes dominated by wave propagation. The conference gives an overview of the current state of development and use of Godunov-type methods in science and engineering, and it offers a perspective of their future development and use. The symposium brings together senior researchers who are experts in the development and use of Godunov-type methods, junior researchers who are currently making significant contributions in this field, graduate students just entering the field, and other interested individuals. It also includes experts from application areas. Many important physical problems involve flow of a compressible fluid; they can be described by differential equations whose solutions have jumps in their values. Computing such a solution is usually difficult. Godunov-type methods are a class of methods that compute the solution by making particular local approximations to it, moving the local approximations forward in time, and piecing together these advanced values in certain ways. Extensions of the original method include higher accuracy in time or in space, higher-dimensional problems, problems with more complicated equations. This meeting is devoted to recent developments in Godunov methods, including not only mathematical and numerical advances but also advances in applications areas. Examples are mesoscale meteorology, the modeling of plasma flows arising in the heliosphere, and a variety of engineering fluid flows.